Non-Linear Superconducting Microwave Circuits

Superconducting microwave devices are posed for entry into the telecommunications markets. A combined experimental and theoretical research program will be undertaken to market. A combined experimental and theoretical research program will be undertaken to study the microwave response of high Tc superconductors in superconducting circuits. The proposed activities will impact a nascent technology by providing a database of materials parameters, and new circuits and systems realizations.